Doctoral Dissertation Improvement Grant: Ritual and Status: Mortuary Display at the Household Level at the Middle Horizon Site of Conchopata

Ancient Andean empires were communications dinosaurs; information and
decision-making traveled only as fast as a human could, and the Andean
peoples did not know writing. Lacking the administrative technology of
contemporaneous European or Asian states, the native empires of the Andes
were forced to develop alternative modes of statecraft, and other
principles to integrate their subject populations. Archaeologists have long
suspected, based on Spanish eyewitness accounts of the Inka empire, that
one of the crucial integrative mechanisms of prehispanic statecraft was the
elaborate mortuary practices of the politically important. In the Inka
empire, the carefully kept bodies of deceased rulers served as material
symbols of dynastic succession and political continuity. Through periodic rituals and
fine mausoleums mummies were the setting for public communication of
messages of political legitimization and imperial authority. While the
role of the dead in Inka statecraft has been well studied, much less is
known about this topic in early Andean empires, such as the Wari; in some
ways a fore-runner of the Inka that dominated the highlands between AD 400
and 800. Ms. Charlene Milliken's doctoral dissertation project, conducted
under the direction of Dr. Marc Bermann, will investigate the site of Conchopata,
Peru. At its height, Conchopata was a secondary center of the Wari empire
(A.D. 600-1000) and consisted of residential zones, public plazas, pottery workshops,
temples, and specialized mortuary complexes. Excavation will center on
residential contexts associated with two mortuary
complexes, and research will test the hypothesis that these mortuary complexes were
used by Conchopata elites in the veneration of important ancestors.
Conchopata is a particularly good location for this research because
several intact mortuary structures have been uncovered; normally these
kinds of facilities were looted or destroyed long ago. This project will
provide the first investigation of the potential role of mortuary activity
in Wari political statecraft as one native means by which authority is
constructed and expressed in non-literate, non-Western populations.